Postdoctoral Research Fellowships in Biological Informatics for FY-1999

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics. The research and training plan is in the area of integrated plant biology and is entitled, "Using DNA micro-arrays to search for patterns of gene expression in plants subject to environmental stress."

DNA micro-arrays allow the observation of gene expression patterns on a whole genome scale. Micro-arrays are being used to collect expression data from Arabidopsis grown in elevated levels of carbon dioxide. This data are being statistically sorted and expression patterns identified by software developed for the project. This software can then be applied to search for patterns caused by other environmental stresses.